Workshop Dealing with the Funding of Synthetic Solid State Materials Preparation Facilities: Providence, R.I., October 22-23, 1987 (Materials Research)

This is a proposal to invite a group of 20 solid state chemists, materials scientists, physicists and engineers to a 1 1/2 day workshop to be held at Brown University sometime in September or October of 1987 to investigate various modes of funding for the purpose of providing materials for the physics and engineering community.